A Novel Chelating Solvent for Non-Aqueous Rechargeable Cells(SBIR Phase II)

The objective of this Phase II project is to develop an electrolyte-supporting solvent for secondary (and perhaps primary) lithium cells (batteries) that would improve cyclability (and thereby extend the lifetime). Such cells are considered thre key component needed for a variety of important applications including electric vehicles and utility load leveling.